Multidimensional Role of Vasopressin Receptors

IBN-9511423 Brinton, Roberta F. Learning and memory are complex functions that are dependent upon many brain regions of which the cerebral cortex is one of the principal players. Growth in the projections emanating from cortical neurons is a structural feature shown to be associated with learning and memory. In fact, a chemical messenger, vasopressin has been shown to enhance memory functions and numerous recognition sites have been found for vasopressin in the cerebral cortex. However, there is little functional information on the role of vasopressin within the cortex. Dr. Brinton will determine whether activation of vasopressin recognition sites leads to an increase in the growth of nerve cells from the cerebral cortex. Additional studies will determine whether vasopressin modulates the function of critical support cells in the brain, which markedly influence the growth and survival of cortical nerve cells. These studies will provide a functional basis for understanding how messenger molecules influence learning and memory by altering cellular physiology in the cortex.